Analytical Studies of Lattice Fermion Schemes (Physics)

This project in theoretical elementary particle physics will study methods of incorporating fermions into lattice gauge theories. In these theories, the continuum of space and time is replaced by a discrete lattice of points. The incorporation of fermions (such as quarks) into such theories is a very difficult problem, but one that must be solved if we are to develop realistic theories of the elementary particles and their strong interactions.